RUI: Analysis of Mount Wilson Solar Magnetograph Data

In this Research in Undergraduate Institutions (RUI) proposal, the Principal Investigator (PI) plans to continue with his investi- gation of large-scale flows and magnetic field patterns in the solar photosphere. The basis will be data collected during the past 22 years at the 150 foot tower telescope at Mount Wilson, including data obtained since 1985 with the new fast-magnetograph. The PI will focus on several interrelated phenomena: torsional oscillations and their relation to solar magnetic activity, the poleward migration of magnetic patterns and the polar magnetic field reversals, meridional flows, magnetic and supergranulation rotation, and giant convective cells. The analysis will use software developed by the PI. Undergraduates will be involved in all phases of the project.